Separable Representation of the Two-body T-Matrix (Physics)

A convenient separable expression is sought for the nucleon-nucleon T-matrix, such that the difference between it and the true T-matrix is sufficiently small that corrections can be made perturbatively.